Improving the Communication Performance of Multiprocessors

Network performance under non-uniform workloads and multistage interconnection network synchronization are very important and fundamental problems in the organization of parallel computers. This project seeks to improve the communication performance of shared memory and distributed memory multiprocessors by reducing the adverse impact of non-uniform traffic. The project seeks to gather real reference traces and examine them by use of a network simulator.